Design and Analysis of Algorithms

This project continues on ongoing study of the design and analysis of sequential, parallel, and distributed algorithms. The research will include both attempts to develop new general tools and techniques as well as solutions of specific problems in five areas: algorithms on strings, dynamic programming, problems on dynamic graphs, competitive analysis of algorithms, and problems in cryptography.